Mid-Atlantic Center for Advanced Technological Education

Brown 9453250 The work during the planning year is the preparation of a comprehensive proposal detailing the establishment and operation of a regional center for developing, promoting and maintaining excellence in advanced technological education. The Mid-Atlantic Center for Advanced Technological Education (MCATE) will include design input from major regional and local leaders in business, government and education. The plan will delineate a modern Center where leaders and innovators in technological education assemble to devote their combined talents to creating new academic models, enhancing partnerships, testing new prototypes, researching and sharing results to transform technological education in the Mid-Atlantic region. The senior personnel, supported by additional College resources, will determine appropriate MCATE activities to provide the development of new curricula,improvement of faculty competence, and provision of a clearinghouse for informAtion, methods, and materials affecting technological education, starting from basic mathematics and science core courses and addressing student development plus expanded opportunities and experiences. Activities will build from and develop partnerships with leaders from public and private schools, colleges and universities, business, industry, and government agencies. The standard for the determination of the Center's activities will be the ultimate impact upon the education of students in the region as they select and prepare for careers in the science and engineering technologies. Each potential activity listed will be ranked to develop the final array.